Research in Nonlinear Control Systems Theory: Lyapunov Functions, Stabilization, and Engineering Applications

Abstract DMS-0424011, Malisoff

Louisiana State University

Research in Nonlinear Control Systems Theory: Lyapunov Functions, Stabilization, and
Engineering Applications

This research will provide new Lyapunov-based stability methods in
mathematical control theory, which are based on the systematic use of
generalized differentials, optimal control, and the input-to-state
stability framework. In particular, the project will derive and apply new
feedback stabilization techniques for nonautonomous systems and
underactuated mechanical systems on manifolds that are not tractable by
the existing theory. Other related lines of research to be pursued
include: a) the explicit construction of time-varying control-Lyapunov
functions, b) the analysis of bifurcation points of discontinuous
feedbacks, c) approximation and regularity theory for Lyapunov functions,
and d) the construction of state estimators for output stable systems.
By developing powerful new engineering and mathematical techniques, this
project will make it possible to analyze a large class of important
stability problems across many disciplines using a single, systematic,
user-friendly approach. Feedback stabilization is used in many areas,
including engineering (e.g., control of autonomous air and surface
vehicles for military surveillance and reconnaissance missions) and
systems biology (e.g., analysis of cell receptors in models of viral
infection). The research will promote learning by supporting graduate
student research assistants, who will apply and validate the project
methods in a mechanical engineering control system laboratory. The project
will be carried out in an institution that traditionally attracts many
minorities, and special efforts will be made to recruit research
assistants from under-represented groups.